Specialization of the Right and Left Cerebral Hemispheres

The cortex of the human brain is divided anatomically into two hemispheres, the right and the left, which, though roughly symmetrical in appearance, are not completely equivalent in their information processing abilities and propensities. This research will investigate the consequences of this functional hemispheric asymmetry for information processing in neurologically normal individuals. The research will do so by investigating the manner in which the two hemispheres make complementary contributions to perception, cognition, and action. One set of studies will increase our understanding of the nature of left-hemisphere dominance for a variety of linguistic processes as well as the consequences of this hemispheric asymmetry for the strategies typically utilized by neurologically normal individuals. A second set of studies will investigate in a number of different ways the hypothesis that the two hemispheres are predisposed toward the efficient use of different types of visual information, i. e., that the right hemisphere makes most efficient use of global or holistic aspects of visual patterns whereas the left hemisphere makes most efficient use of local or more fine-grained detail. A third set of studies will investigate the ways in which the brain encodes information about spatial dimensions such as left versus right. A fourth set of studies will deal with the question of how it is that unity of thought and action emerges from a brain consisting of two hemispheres that differ in so many ways. These studies will determine the variety of ways in which the two hemispheres interact with each other. Of particular importance are studies that will determine when and how the style of processing characteristic of one hemisphere or the other comes to dominate performance. Cognitive neuroscience has helped us to understand the modular nature of the brain, to break it down into meaningful components. These studies of interhemispheric interaction will begin to put the components back together. A fifth set of studies will investigate individual differences in these aspects of hemispheric asymmetry and interhemispheric interaction. This will be done by having the same individuals participate in a variety of experimental tasks and by discovering how performance on one task relates to performance on others. All five sets of studies will address basic issues in cognitive neuroscience. At the same time, the outcomes will have implications for a variety of more applied questions. For example, it has been hypothesized that a variety of learning disabilities such as dyslexia and attentional deficit disorder result from unusual patterns of hemispheric asymmetry or from difficulty in coordinating the activities of the two hemispheres. The noninvasive behavioral techniques emerging from this research will be capable of separating the many aspects of hemispheric asymmetry and interhemispheric interaction and should make it possible to test these hypotheses.